Center for Ultraviolet Radiation Research at the Hawaii Institute of Marine Biology

Project Summary This project will provide equipment to enable the Hawaii Institute of Marine Biology to serve as a center for diverse research on UV radiation in the tropical marine environment. An international workshop on UV radiation in the sea (Aug., 1994) concluded that HIMB's history of such research and its sub-tropical location make it the most logical site in the U.S.A., or the world, for such a center. A scanning spectroradiometer will allow precision measurement of radiation in the laboratory and the field. A UV- sensitive/visible wavelength remote controlled television will allow visual perception and measurement of portions of the sensory world of marine animals of which humans are dismally unaware. Visitors will be encouraged to use these facilities and several leading investigators in the field have firm plans for participation.